Discrete-Time Models for Biological Invasions: Variability and Multispecies Interactions

Neubert
9973212
The investigators systematically develop and analyze
mathematical models of biological invasions. Their aim is to
understand how three key factors (species interactions,
environmental heterogeneity, and demographic stochasticity)
affect the invasion process. The models take the form of systems
of nonlinear integrodifference equations. They test their models
with data from a nascent, biologically simple invasion: the
spread of lupine and its caterpillar herbivore into the Pumice
Plains region of Mount St. Helens following its 1980 eruption.
Invasions by exotic species -- species like zebra mussels,
gypsy moths, and purple loosestrife -- are occurring more
frequently than ever before. In one recent year, 456 million
exotic plants were imported into the United States. The
biological and economic consequences of these invasions can be
dramatic; estimates of the damage done to agricultural crops by
exotic species run in the billions of dollars. A key to
controlling the spread of exotic species is a scientific
understanding of the factors that determine how fast they spread
across the landscape. One way to obtain this understanding is
through the use of mathematical models of the invasion process.
The investigators construct and analyze invasion models that
incorporate an important biological reality that has often been
missing in other studies: the fact that invaders interact both
with their prey and often with simultaneously introduced
predators and competitors. They test the predictions of their
models with data from actual biological invasions that occurred
in the wake of the eruption of Mount St. Helens. The insight
they gain from these studies will help environmental managers
deal more effectively with invading nonnative pest species.
The project is supported by the programs of Applied Mathematics
and of Computational Mathematics and the Office of
Multidisciplinary Activities in MPS and by the programs of
Population Biology and of Ecology in BIO.